Ocean Acidification - Category 1: Climatological Mean Distribution of pH in Surface Waters in the Unified pH Scale and Mean Rate of changes in Selected Areas

In this project, researchers at the Lamont-Dougherty Earth Observatory of Columbia University will obtain the global distribution of surface ocean pH in a single unified scale based on the observations for pCO2, total alkalinity and total CO2 ion concentration (DIC) in surface waters. They will utilize three decades of their own pCO2 and DIC data, which are based on David Keeling's (and successor Pieter Tans at ERL/NOAA) WMO manometric CO2 standard, and the well-calibrated alkalinity data from the WOCE program (Dickson et al., 2003) and the time-series stations including BATS, HOT and ESTOC. These data will allow establishment of a global ocean pH and carbonate concentration baseline anchored firmly to the international CO2 standards common to the atmospheric and oceanic CO2 measurements. The pCO2 and DIC data obtained in different years will be corrected to a reference year 2000, and a climatological distribution of monthly mean pH in the total hydrogen ion scale and carbonate ion concentrations will be computed using the dissociation constants for carbonic and boric acids of Lueker et al. (2000) and Dickson (1990). This will serve as a world ocean baseline distribution for the characterization of future ocean acidification. In some data-rich areas of the North Atlantic, North Pacific and Southern Ocean, the rate of change will be demonstrated.

Because of calibration problems associated with direct pH measurements, an observation-based global ocean pH distribution map is not possible; presently the information is based on ocean GCM studies without land interactions. The research team’s ongoing analysis of the alkalinity data shows, however, that its distribution differs from the open oceans in the broad regions of land interactions such as in the Bay of Bengal, Arabian Sea, Gulf of Alaska and Bering Sea. This suggests that the model results are biased by the omission of rivers and land interactions. The results of our proposed investigation will be used for the validation of global biogeochemical ocean models and will help to place the global ocean acidification study on a much firmer base.

Broader Impacts: Baseline information is needed for accurate characterization of global environmental changes. The purpose of this study is to provide a global surface ocean baseline for pH and carbonate ion concentration in waters computed in a uniform pH scale using an extensive pCO2, alkalinity and DIC database obtained for past several decades. This should serve as a reference level, against which the future and past changes may be referenced.